CIF: Small: Degree of Freedom Region of Interference Networks

For point-to-point communications, channel capacity is very well
understood, and there are schemes that approach the capacity for
most useful channel models. In contrast, the multi-user communication channels
are not as well understood. The channel models are more complicated, there are
more varieties, and many important problems remain open. As one well-known
example, the capacity problem for discrete memoryless broadcast channel is
still unsettled. As another example, the interference channel capacity region
is known only in certain special cases (such as strong interference). What is
clear from the recent studies of such channels is that in a multi-user
wireless network, the key performance limiting factor is often the interference rather
than the noise, especially at high signal-to-noise ratio.

To alleviate this difficulty, the notion of degrees of freedom has been used as
a first order characterization of the system throughput as normalized by the
logarithm of the signal to noise ratio. The total degrees of freedom of
several interference networks have been quantified. On the other hand, the
degrees of freedom region, which is more revealing than the total degrees of
freedom, is much less well understood. For most of the interference networks,
the regions remain unknown.

This project seeks to quantify the degree of freedom regions of a
class of general interference networks with multiple transmit nodes and
multiple receive nodes, possibly equipped with multiple antennas, and with
general message demands. In particular, we will study the X interference
network, which include interference channels, broadcast channels, multiple
access channels, as special cases. Through interference alignment design based
on vector and rational independence, we will bound tightly the degrees of
freedom region and devise schemes that are optimal (or near-optimal) in the
degree-of-freedom sense.

Broader Impact: The project will advance significantly our understanding of
interference networks, and positively impact the design, architecture, and
signal design and processing for next generation wireless networks. The
project will also help train the next generation of researchers and engineers
in the field of signal processing and communication networks.